SST: Fully-integrated CMOS Biochip Arrays for Multicolor Biomolecular Diagnostics

0428544
Shepard
This research addresses the development of multiplexed CMOS-based fluorescence sensors for sensing biomolecules (proteins and DNA). The goal is to develop generalized planar arrays with sensor densities on the order of ten thousand sensors per cm2. The investigators will explore both steady state and dynamic fluorescence. The sensor will contain an integrated interference filter consisting of quarter-wavelength layers for rejecting the excitation source. The investigators will consider many measurement issues, and are guided in part by their previous experience with the CMOS biochip labeled Imager F1. These issues include leveraging of economies of scale to provide low-cost devices; optimizing device self-sufficiency and miniaturization to afford maximum portability; developing parallelized designs for detection of multiple target analytes; enabling sensor-level logic for detection, calibration, and control; and optimizing dynamic range, sensitivity, and speed of detection. The existing technology is to do the detection chemistry on a glass slide, and then to carry out the detection via external sensors (or readers). This design while robust is meant for a laboratory setting. The proposed approach of integrating sensing chemistry with sensors has the potential of being compact and portable.